U.S.-Romania Research on Selenium and Tellurium Chemistry (Project Development)

Dr. Ionel Haiduc of Babes-Bolyai University, Cluj-Napoca, Romania will visit Dr. Robert Bruce King of the University of Georgia, Athens, to initiate joint chemical research on planar selenocarbons and tellurocarbons. Results are expected to contribute to the definition of a longer-term and mutually beneficial cooperative research project in inorganic chemistry for consideration by the National Science Foundation or the National Academy of Sciences.